Support for Students to Attend the 35th Annual DAMOP Meeting

This award provides support for student attendance at the 35th annual meeting of the Division of Atomic, Molecular, and Optical Physics (DAMOP) of the American Physical Society. The meeting will be held at the University of Arizona, May 25-29, 2004. This is the principal meeting covering principles of AMO physics held each year, and this award gives students the opportunity to participate in DAMOP sponsored events. As part of the activity, conference organizers will hold a special pre-conference symposium for students to hear special presentations on topics of particular DAMOP interest.